CC* Integration: SANDIE: SDN-Assisted NDN for Data Intensive Experiments

Advancing discovery in many scientific fields depends crucially on our ability
to extract the wealth of knowledge buried in massive datasets whose scale and complexity continue
to grow exponentially with time. In order to address this fundamental challenge, this project will
develop and deploy SANDIE, a Named Data Networking (NDN) architecture supported by advanced
Software Defined Network services for Data Intensive Science, with the Large Hadron Collider (LHC) high energy
physics program as the leading use case.

The implementation of SANDIE will leverage two state of the art testbeds: the NDN testbed hosted and serving the climate
science community at Colorado State, and the SDN testbed hosted at Caltech. Building on these facilities, and the support for SDN services
From multiple advanced Research & Education network partners,
we will deploy a set of ten high performance, relatively low cost NDN edge caches with SSDs
and 40G or 100G network interfaces at six participating sites: Caltech, Northeastern, UCSD,
University of Florida, MIT and CERN, together with an existing cache at CSU.